Support for a Workshop Entitled: Materials Science of Concrete - Whither Now?

A Workshop is being planned for April 2000 on materials science of concrete to define opportunities for future on concrete using the principles and tools of materials science. The proposal requests $10,000 from NSF to support this workshop. The workshop will contribute much to the scientific, engineering, and educational activities intake area of concrete materials. It will help the research community define its research program regarding this important class of materials. It will keep concrete research directly linked to materials science. And it will open for discussion current topics in materials acting that may have application in concrete research. The overall focus of the workshop will be applications of current developments in materials science to future research in cementitious materials. Specific topics will include: surface chemistry, microscopy, imaging, computational, chemistry, spectroscopic techniques, and transport.